SBIR Phase I: Novel Ceria Nano-particle Containing Bioactive Scaffolds for Enhanced Bone Regeneration

This Small Business Innovation Research (SBIR) Phase I project aims to develop ceria nano-particle coatings on bioactive glass for bone regeneration. The approach is to combine the two different classes of inorganic bioactive materials to obtain a new generation of synthetic bone regenerative materials. This new material will have the capacity, through engineered nanoparticles and tailored kinetic release of specific ions, to stimulate early angiogenesis and provide an ideal scaffold for cell recruitment and proliferation, thereby accelerate the repair process.

The broader/commercial impact of this project will be the potential to address the growing need for better solutions of bone regeneration, given the fact that over 10 million Americans have osteoporosis. By developing inorganic materials with specific ionic release and strong anti-oxidative properties, this project is expected to address the demand for adequate bone graft materials to be used throughout the body and achieve the bone regeneration.